ABR: Hotspot Dynamics and Ridge-Hotspot Interactions

9416588 Morgan This is an accomplishment based renewal. The principal investigator will use theoretical models to explore a model for melting and flow beneath hotspots and develop models that can explore the interactions between melting at mid-ocean ridges and melting at hotspots. ***